Engineering Research Equipment Grant: Instrumentation for Unsteady Convective Heat Transfer Research in Rotating Machinery

The unsteady flow which occurs in the passages of high temperature turbomachinery strongly influences the heat transfer between the fluid and the walls of the passages. In modern rotating machinery, the unsteadiness arises largely through the relative motion of the alternating rows of stationary and rotating annular blades. The instrumentation requested to study the heat transfer process includes a short duration combustion system, fast response heat flux sensor accessories, and a high speed data acquisition system and microcomputer. Research into turbulence modelling, three-dimensional boundary layers, wakes and jets, high speed flows, and inviscid aerodynamics are other topics to which the equipment package could be applied. Recent experiments have demonstrated that flow unsteadiness can affect the aerodynamic and heat transfer performance of turbine blades. There is a need to develop theoretical models for this flow. By identifying the mechanisms through which the unsteadiness affects the blade heat transfer, properly designed experiments can play a vital role in the development of analytical tools.